Mathematical Sciences: Critical Point Theory and Differential Equations

The various directions of this research are bound by a common theme, the use of variational methods in addressing problems of mathematical analysis. Areas of concern include dynamical systems, nonlinear partial differential equations and geometry. The methods, both analytical and topological, are rooted in previous work; in particular on variational problems in which compactness assumptions are not available. Among the topics to be investigated is symbolic dynamics, in which the contribution of the periodic orbits provided by the Birkhoff-Lewis theorem connects the framework used in dynamical systems with that used in variational theory. A particular goal is to carry over existing work to the case where the stable and unstable manifolds of a hyperbolic fixed point intersect transversely. This situation arises frequently in the study of dynamical systems, for example in the restricted three-body problem. Related work will be carried out on collisions and existence of periodic orbits of three-body type. It is planned to establish the existence of infinitely many generalized solutions and to demonstrate that these solutions have good properties, i.e. that one can attach to each of them a Morse index which describes the difference of topology that they induce in the level sets of the variational problem. Variational methods in science date back to the nineteenth century when the mathematical framework of much of what we know as the physical universe was laid out. The principles of least action and energy minimization still apply to many of the models used in describing natural phenomena. The present work continues investigations into the mathematical consequences and equations which arise from variational approaches to the study of complex motions.